Rural Systemic Initiatives in Science, Mathematics,and Technology Education - RSI: Leadership for Science and Mathematics Program Improvement Through Master Teachers

ABSTRACT

The project would work with teachers who are involved in the RSI reform. It would provide professional development opportunities to the teachers in the RSI schools, and would develop a sustainable leadership component for the central Appalachian region. These activities are strongly aligned with the goals of the RSI project. The professional development offered to teachers would be heavily content-oriented, with some pedagogical training.